Magnetostatic Interaction of Guided Optical Wave & Magnet- ostatic Surface Waves in Yittrium Iron Garnet-Novel MSW/Fiber Optic Devices for Lightwave Communication

This effort relates to the possibility of exploiting magneto-optic interactions in conjuction with optical fibers for the encoding of information of a light beam.